R/V WECOMA Mid-Life Refit, Phase II Cost Estimate

9618637 Jones In March 1994, Phase I of the mid-life refit of the R/V WECOMA, an NSF-owned research vessel operated by the Oregon State University, was completed. This project will update the Phase II design package to provide revised cost estimates. The project is under the direction of Frederick J. Jones, Marine Superintendent, College of Oceanic and Atmospheric Sciences, Oregon State University. ***